An Undergraduate Computer Graphics Laboratory for Mathe- matics and Computer Science.

Under this project, Carleton College will develop a computer graphics laboratory using a MicroVAX II computer, a high resolution display and five low resolution terminals. The laboratory will support both computer graphics courses and independent student study in this emerging area. Two student research projects are contemplated. One is to produce three dimensional images from two dimensional representing cross-sectional slices of biological specimens. The other is to produce three- dimensional, animated sequences. Emphasis in the courses and laboratory will be on the mathematics, physics, and computer science theories that form the basis of modern computer graphics.